NSF Young Investigator

9458164 Gouaux The work in this project involves using x-ray crystallography to elucidate the three-dimensional structures of membrane proteins, with a focus on oligomeric complexes which form channels or pores. The current concentration of these studies is on a class of bacterial toxins that exist in two distinct states: water-soluble monomers and membrane-bound oligomers. Members of this class of molecules include -hemolysin from Staphylococcus aureus, aerolysin from Aermonas hydrophila and cytotoxin from Pseudomonas aeruginosa. Mechanisms for assembly of this specific class of transmembrane pores will be developed and from this, models will be developed for the assembly of oligomeric membrane proteins in general. To accomplish these aims strategies have been developed for; 1 ) crystallization of membrane proteins which involve sparse matrix and systematic approaches; 2) proven the ability of n-alkyl dimethylphosphine oxide detergents for use in membrane protein crystallizations; and '3) have identified novel amphiphiles which promote the growth of large single crystals. More than 15 different crystal forms of the detergent-solubilized -hemolysin oligomer have been formed (three of which diffract beyond 3.0 angstroms) and have 3 distinct forms of the water-soluble monomeric species. Determination of the oligomer ace form is underway. During the time of this award plans are to crystallize and determine the structures of assembly intermediates of -hemolysin using different mutants that are "frozen" at different stages and to pursue crystallographic studies on related toxins and on important oligomeric membrane proteins. %%% The transduction of energy, the active and passive transport of ions and molecules, the transmission of biochemical signals into and out of cells and organelles, and the action of potent bacterial toxins are some of the critical biological processes mediated by membrane proteins. Models of the three-dimensional structure and the function of membrane proteins are much less developed when compared to models that describe the properties of water-soluble proteins. The work in this project involves using x-ray crystallography to elucidate the three- dimensional structure of membrane proteins. -Hemolysin, one of the important virulence factors from Staphylococcus aureus, kills blood cells by forming a hole in the cell membrane. This project is focused on understanding how the toxin assembles itself on the surface of the cells - that is, how it actually creates the fatal pore in the cell membrane. In addition, studies are planned on crystallography of related toxins, ion channels and receptors. These fundamental studies will lay the foundation for genetic engineering of membrane proteins for use as novel biomaterials and as chemotherapeutic agents. ***